Regional Networking in New England Proposal No.8

9527043 Roubicek This award connects eight educational institutions to the Internet: Becker College Fisher College Lesley college Mount Ida College New England College of Optometry Pine Manor College Teikyo Post University The Sea Education Association, Inc. Faculty and students at the new sites will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provide partial support of the project for two years.